Complexity of Computing with Polynomials

This project focuses on determining complexity bounds for algorithms that compute with polynomials. The first part of this project deals with polynomials with sparse encodings which can be much shorter than those encodings traditionally used in computer algebra. Two problems are examined: (1) How to find a sparse representation of a polynomial; (2) How to design algorithms that manipulate sparse polynomial representations. The method of operator eigen-functions, used in the interpolation problem for sparse polynomials, is exploited. The second objective of this research project is to obtain a lower bound for an algebraic decision tree algorithm which tests the membership of a point in a polyhedron. This test is a technique which is used in linear programming. The previous techniques, for determining lower bounds for such algebraic decision trees, are based on the topological invariants of a tested set. These topological methods cannot be used in this case, because each polyhedron has trivial topological invariants. The new methods explored, are based on the singularities of a set given by a system of polynomial inequalities. Applications of these techniques to complexity of systems of polynomial inequalities are examined.